CAREER: A Biomimetic Active Separation Device Based on the Microtubule Motor Protein, Kinesin

CTS - 9624907 Russell Stewart University of Utah ABSTRACT The project is on the fabrication of a microanalytical separation device incorporating the microtubular motor protein (kinesin) into nano-fabricated machines. A prototype active chromatography device will be built to recognize, separate and detect specific DNA fragments on a single micromachined chip. A fluorescent-labeled DNA fragment in solution will attach selectively to the motor protein and move along aligned microtubules in a microchannel to a detector. The potential impact of the project is strong in bioseparations and chemical process monitoring. If successful, it may be possible to mimic intracellular transport in fabricated machines. The educational plan includes development of a new lecture and two laboratory courses on protein engineering and microfabrication. Students will be trained to apply biological principles to conventional engineering problems.